Mathematical Sciences: Problems in Viscoelastic and Multilayer Flows

9306635 Renardy The proposal addresses a number of problems in the mathematical analysis of viscoelastic and multilayer flows and encompasses three components: i) the development of a rigorous mathematical foundation for the analysis of instabilities and bifurcations in viscoelastic flows. The issues to investigate include the connection between linear stability and spectrum, and the existence of center manifolds which allow the reduction of the dynamics to ODEs. While these issues are well understood in Newtonian fluid dynamics, very little is known in viscoelastic fluids; ii) the study of instabilities and qualitative dynamics of fluid interfaces. Previous work in the area has been concerned with linear stability and "simple" bifurcations. The proposed research will concern more complicated bifurcations, such as sideband instabilities, and situations where several unstable modes coexist; iii) the study of flow problems with open boundaries. Such open boundaries arise from truncation of flow domains for numerical purposes. The proposed research is aimed at addressing questions relating to open boundaries in viscoelastic flows, and the possibility of artificial instabilities resulting from the presence of open boundaries. A graduate student will work on the existence of steady flows for model equations resulting from kinetic theories of polymer solutions. The proposed research is aimed at further developing the mathematical theory of the flow of polymeric liquids, as well as multilayer flows. Such flows are important in many industrial processing operations. The results of the proposed research will be helpful in developing a better qualitative understanding of such flows and in developing methods for their numerical simulation. The research focusses in particular on the study of instabilities, i.e. qualitative changes in the nature of the flow when certain parameters are changed, and on problems introduced by artificial boundaries which arise w hen the flow domain is truncated for numerical purposes. ***